Analysis of Turbulence Data Obtained in the von Karman Experiments

The objective of this work is the analysis and interpretation of observations of wind, temperature, and moisture from the atmosphere's boundary layer; the measurements were acquired at four sites over the past three years. The observations are perhaps the best taken in the past two decades and will be used to determine the turbulent energy budget in the boundary layer, the Kolmogoroff constants for temperature and velocity, and an independent determination of the von Karman constant. The behavior of the boundary layer is important to understand since it is capable of transporting water vapor, heat and momentum to the upper layers of the atmosphere, thus initiating or suppressing other meteorological developments throughout deep layers of the troposphere. Professor Friehe is well qualified to pursue the proposed work; he participated in all four experiments as well.